REU: Morehouse College - Zoo Atlanta Undergraduate Research Program in Animal Behavior and Conservation Education

9424218 This award supports undergraduate research by students from the four institutions that make up the Atlanta University Center. In each of 2 years, 3 students will conduct research in behavior and conservation biology for 8 weeks at Zoo Atlanta, then continue research as part of a directed studies course during the academic year. Other activities will include seminars and a weekly research meeting in which all students and mentors participate.